CoSMiC * -- Computing, Sciences, and Mathematics in College

This project is awarding scholarships to academically talented and financially needy students and is supporting the scholars through a variety of structures and programs. Women and students from underrepresented groups are being especially targeted for support. Students are being targeted for participation in the scholarship program that are enrolled in science, mathematics, and computing programs at the institution. This project continues best practices established in an earlier S-STEM project but is being expanded to include students majoring in two newly developed interdisciplinary programs, namely, Molecular Biology, Biochemistry, and Bioinformatics (MB3) and Forensic Chemistry. Focus areas for the project include emphasizing persistence and improved retention, the formation of a community of scholars through the cohort approach, and informing students of the nature of careers in interdisciplinary areas.